Articulation of the Marine Advanced Technology Education (MATE) Program with the Oceanographic Research Community

The Consortium for Oceanographic Research and Education (CORE) and the NSF Marine Advanced Technology Education (MATE) Center in Monterey are coordinating a series of activities designed to target articulation between MATE and the community of research universities and institutions involved in oceanographic science and technology. These universities and other institutions represent a current and future employer for the graduates of marine technology programs. The project is identifying opportunities, tools, and mechanisms for establishing and maintaining a long-term relationship among the oceanographic basic research community and the network of community colleges involved in the MATE program. Marine technicians who are the primarily beneficiaries of two-year college marine technology education programs work in a wide variety of jobs and represent a major portion of the workforce at the oceanographic research universities and institutes in the united States. Three primary areas involving marine technicians are being addressed in the projects: demographics, curriculum development, and infrastructure and management of the workforce. The workshop organized by CORE will use a multifaceted approach to address issues in demographics, curriculum development, and infrastructure. Activities include: (a) a survey of research community to establish baseline data on duties and responsibilities and education of marine technicians; (b) bringing together of a steering committee to define the structure and final questions to be addressed in such a workshop; (c) organizing and convening the workshop itself; and (d) development and widespread dissemination of products relating to workshop activities.